Support Young Investigator Attendance at 2010 IEEE International Symposium on Biomedical Imaging in the Netherlands, April 14-17, 2010

1005327
Dhawan

The IEEE International Symposium on Biomedical Imaging: From Nano to Macro (ISBI) is a forum for researchers particularly interested in the computational and modeling aspects of biomedical imaging. It emphasizes methodologies that have the potential to be applicable to multiple imaging modalities and to imaging at different scales. Topics include physical, biological and statistical modeling of biological and anatomical structures, image formation and reconstruction, computational and statistical image analysis, visualization, and image quality assessment. The meeting aims to facilitate cross-fertilization of methodologies between different imaging modalities and scales, with applications ranging from the nano, molecular and cellular levels through small-animal imaging to macroscopic and whole-body clinical systems. Whereas many medical imaging meetings focus on particular modalities, ISBI includes a diversity of methodologies applied to biological and anatomical imaging modalities, either emerging or well established. Applications of interest include gene expression mapping, drug discovery and delivery, molecular imaging, functional brain mapping, computational neuroanatomy, cardiovascular imaging, and cancer imaging. A principal goal of ISBI is to connect methodologies with important biomedical applications, from microscopic to macroscopic scales.

ISBI 2010, to be held April 14-17, 2010, in Rotterdam, the Netherlands, will be the seventh in a series of meetings cosponsored by two IEEE societies: the Engineering in Medicine and Biology Society (EMBS) and the Signal Processing Society (SPS). The inaugural ISBI meeting was held in July 2002, and subsequent ones in April 2004, 2006, 2007, May 2008, and June-July 2009. The success of the previous ISBI meetings bodes well for the future of ISBI. The success of ISBI and its impact on the field, and indeed the future of the field itself, relies on training young investigators to work with state-of-the-art sophisticated computational or modeling tools and on informing the researcher community of the latest progress in medical imaging protocols and modalities. In addition, the inherently interdisciplinary nature of the biomedical imaging field means that no single professional organization has the majority of potential participants as its members. In this context, the tutorials series, covering very diverse topics and offered on the first day of the symposium, is an important component, which has been very popular in previous ISBI meetings. This project will fund to support the participation and attendance at the symposium by US based young investigators (students, postdoctoral fellows, and junior faculty).